Simulations and Reconstructions of Global Ocean Circulation with Well-Resolved Eddies for the WOCE Observational Period 1991-97

9401910 Semtner The PI has an operational world ocean circulation model which has been used to simulate ocean circulation for the period 1985-89. The current project is to test improved physical formulations for the addition of sea ice, mixed-layer dynamics, and parameterizations of deep overflows and deep convection. Techniques will be tested for incorporating satellite altimeter data from the Geosat, TOPEX/Poseidon, and ERS-1,2 missions into the model. Model simulations will be conducted with and without the inclusion of satellite data, including some simulations in near-real time for the WOCE observing period. In-situ WOCE observations will be used to evaluate the realism of the simulations. ***